A Middleware Testbed for Supporting Flexible Consistency and Mobility

Distributed systems are becoming ever more important as they provide information support for basic infrastructures such as electrical and telephone service, and as a means for corporations to manage worldwide operettas. They are also becoming ubiquitous because many applications demand greater computational power and require distributed resources. The net impact is that a vast amount of data needs to be shared across a broad array of users.

The proposal plans to investigate the long-term issues of mobility and efficiency in the design of scalable middleware for distributed systems. The effort will include the implementation of a distributed middleware for mobile environments. Specific research themes to be pursued are:
- formalization and implementation of consistency requirements for middleware
- algorithms for data placement and replication
- protocols for support of conflict resolution and the support of mobility, and
- incorporation of stream data in a computational framework.

The results of these investigations will be the development of an experimental prototype that uses the researched algorithms and protocols. In order to experiment with the prototype, a number of applications will be implemented in a campus environment. The goal of the research is to help guide long-term development of middleware at large scale.